SHF:Small: Build Code Maintenance and Detecting, Testing, Locating Configuration and Build Errors

Software has become a critical infrastructure in our society with its
pervasive use in all kinds of products from home appliances to
automobiles, from individual pacemakers and smart phones to air
traffic control systems and high-end computers in large-scale power
grids. During software development, the build process is vital to make
sure that a software product is correctly and reliably constructed and
configured in accordance with different users' operation environments,
operating systems, platforms, and devices. To reliably build a
software product, a build tool is used to execute build code to
generate the executable and deliverable files according to the rules
specified in the build files. As a software project evolves over time,
build code continually evolves and is defect-prone due to the high
rate of changes and complexity of the build files. The complexity of
build code leads to two important issues. First, the maintenance of
complex build code has imposed much extra effort on software
developers. Second, its complexity is a source for configuration and
build errors in software development.

This project aims to improve software reliability with a comprehensive
approach to develop a scientific foundation for build code analysis to
provide automatic supports for 1) build code maintenance and 2)
detecting, testing, and locating configuration and build errors. We
will first examine configuration and build code errors and related maintenance
tasks in real-world projects. Second, we will develop a scientific foundation
with novel concepts, techniques, and algorithms for build code static
analysis, build code smell and configuration error detection,
refactoring, and change analysis. Third, we will investigate a
foundation for build code dynamic analysis and leverage it to support
fault localization in build code given a reported build
failure. Finally, a theoretical foundation and tool supports
(e.g. semi-automatic test generation) for build code testing will be
developed. Our research will fundamentally advance the body of
knowledge in theoretical foundation for software building, build code
analysis and maintenance. Our results will lead to more reliable
software and improvement in code quality as well as in the developers'
productivity. Our validation efforts involve students and
professionals, promoting teaching and training in information
assurance and software reliability.